SBIR Phase I: Micro-Optic Spectroscopic Imaging Sensor

*** 9760845 Aye This Small Business Innovation Research (SBIR) Phase I project will develop a Micro-Optic Spectroscopic Imaging Sensor (MOSIS), based on a polarization sensitive diffractive micro-optic array. MOSIS will be a miniature, compact, lightweight monolithic device capable of multi-spectral, polarimetric imaging in real time. Phase I will microminiaturize a conventional spectrographic system using a refractive-diffractive micro-optic array, integrated with a high resolution charge-coupled-device (CCD) array to form a two-dimensional (2-D) imaging sensor. Because of the focusing property of the refractive element and the high spectral dispersion of the diffractive elements, the device will perform high resolution (1-10 nanommeters) spectroscopic image detection in a broad visible-to-mid IR spectral range. This MOSIS is a simple monolithic focal-plane array consisting of a stack of three basic elements: (1) a refractive microlens array; (2) a pair of conjugate birefringent diffractive optics arrays; and (3) a 2-D detector array, which can be a commercial CCD chip. This approach can be applied to any desired bands of the optical spectrum without any limitations imposed by materials or fabrication processes as in the passive (holographic or multilayer) and active (acousto-optic or liquid crystal) filter-based devices. Applications are expected in compact, low-cost, reliable, polarimetric imaging, multispectral sensor systems for remote sensing in ocean monitoring, environmental sensing, mineral identification, agricultural surveillance, biomedical and chemical spectroscopic imaging, and industrial inspection. ***